A High Resolution Study of Linear and Nonlinear InteractionsWithin the Equatorial Pacific Carbonate System Over the Past4 Million Years Using GRAPE as a CaCO3 Proxy

A high resolution study of linear and non-linear interactions within Equatorial Pacific carbonate system over the past 4 m.y., using GRAPE as a CaCO3 proxy. Record of this proxy from ODP Leg 138 and its detailed oxygen-isotopic data will be used to learn more about the dynamics of the carbonate system. A two year funding is provided.